Formation Mechanisms and Fabrication Strategies for Molecularly Aligned Protein Arrays

9729950 Channing Numerous biotechnological applications rely on the function of proteins in the vicinity of or confined to interfaces. Examples include biocompatible materials, protein chromatography, solid phase immunoassays, and biosensors. While protein-protein interactions at interfaces have been exploited in these technologies, and are prevalent throughout nature, little is known concerning the mechanism by which such interactions lead to protein self-organization. A better understanding of the factors involved in two-dimensional biomolecular ordering would aid the development of these technologies. This project is to investigate the influence of intermolecular forces on two-dimensional protein crystallization, and to calculate the energetics of two dimensional crystals. ***